Understanding Ourselves, Understanding Each Other: Psychology's Search--A Traveling Exhibition

The American Psychological Association, in cooperation with the Association of Science-Technology Centers (ASTC), will develop a series of exhibits on psychology using a discovery room/science laboratory approach. The exhibition will, for the first time, offer museum visitors a first hand opportunity to explore the tools, methods, and concepts of psychology in such areas as thinking and feeling, dreaming and sleeping, perceiving and communicating. The exhibition will travel to eight museums over 30 months through the ASTC traveling exhibition service and will reach over a million visitors. A wide selection of additional materials and resources such as films, seminars, lectures and workshops will be offered to the participating museums to extend the impact of the exhibition. Plans of the exhibits will be made available to other museums. NSF support represents less than 50% of the total cost of the project.